Individuation in Language and Cognition

Individuation is a basic and fundamental aspect of cognition which
pervades everyday thinking and perception. We treat some
things and not others as distinct individuals. For example, looking out
onto a beach, we may perceive a barking, furry, four legged thing as "a
dog." We treat the dog as a distinct individual. However, we do not
individuate the sand below the dog. Instead, we construe sand as a
nonindividuated entity. These and other observations suggest that there
are two fundamentally different kinds of things in the world -individuated
entities and non-individuated entities. The proposed research addresses
individuation in a variety of ways, including a cross-cultural approach.

What perceptual and conceptual factors lead people to individuate
some aspects of their world but not others? People appear to individuate
things across diverse domains that appear to have little in common and
within domains that appear to have much in common. For example, some abstract concepts are individuated (e.g.,idea, wish) but others are not (e.g., evidence, insanity). Some events are individuated (e.g., party, explosion) but not others (e.g., sleep, running). We will conduct studies which identify the causal factors of individuation. Experiments will also be conducted to clarify the role of language in individuation by conducting studies with adult Japanese speakers that parallel those with adult English speakers. This issue is of interest because languages vary in how and to what extent they signal individuation. English uses count/mass syntax to signal individuation. In contrast, Japanese uses classifiers and certain quantifying modifiers and shows less tendency to explicitly signal individuation. The results of these experiments should allow us to make significant progress in developing a general theory of individuation. From a practical point of view, the cross-cultural work may improve second-language learning. In addition, the roposed methodologies may eventually be adapted to diagnostic tools for very basic language and thought disorders.